A Magnetostragraphic Study of the Middle Carboniferous of the Tam Worth Belt, N.S.W., Australia (the Kiaman Revisited)

9316582 Opdyke PI, collaborator E. Irving, and colleagues in Australia will conduct an accurate survey of the geomagnetic Kiaman events, associated with a time of geomagnetic polarity stability. Goals are to test the synchroneity of the base of the Kiaman (worldwide), establish its utility as a global stratigraphic marker, and attempt to determine the broad-scale kinematics of Pangea's assembly. Possible implications for idea of superplumes will be assessed.